Applications of Moving Frames

0103944
Olver

The project will focus on the applications of the proposer's new
equivariant theory of moving frames for general Lie group actions.
Particular emphasis will be in three key applied directions: analysis and
applications of invariant variational problems and invariant partial
differential equations in geometry and physics, the design of symmetry-
preserving numerical algorithms for approximating differential invariants
and integrating invariant differential equations, and object recognition and
symmetry detection in computer vision based on differential invariant and
noise-resistant joint invariant signatures. The project will include further
development of the underlying moving frame theory, particularly in the
case of infinite-dimensional Lie pseudo-groups, and the formulation of a
proper geometrical foundation for multivariate numerical approximation
and interpolation.

The recognition and exploitation symmetry is an essential tool in modern
mathematics and its applications. This project will continue to develop a
new, powerful geometric approach, known as moving frames, to systems
that have continuous symmetry. The modern moving frame theory
developed by the PI has already witnessed a remarkable range of new
applications, including computer vision, for object recognition and
symmetry detection, a geometric approach to classical algebra and
invariant theory, as well as the design of numerical integration schemes
that preserve the underlying symmetry of the problem to be solved. The
combination of analytical, geometrical, and numerical advances, coupled
with practical applications has proved to be a particularly potent blend of
theory and practical tools. This research project will continue the rapid
development and application of the moving frame method, concentrating
on theoretical developments tied to applications in computer vision, in
geometry and physics, and in symmetry-based numerical integration
methods